Modeling, Design, and CMOS Performance Projections of Nanoscale Double-Gate FinFETs

The objective of this research is to aid and expedite the development of optimally designed
nanoscale double-gate (DG) FinFETs for integrated circuit (IC) applications beyond the gatelength
scaling limit (Lg < ~45nm) of today's conventional, or classical CMOS technologies.
Although FinFET technology is related to conventional MOSFET technology, the nonclassical
DG device is quasi-planar with the channel and source/drain extensions formed in an ultra-thin
vertical silicon (Si) fin. Thus, the device processing is complicated because of uncertainties in
how dopant impurities diffuse in such thin fins, and the device design is complicated because of
complex physics underlying the electrostatics and carrier transport in such thin fins. The research
will address these complications in both device processing and device design, as well as project
performances of nanoscale-FinFET CMOS. It will be based in large part on a physics-based
compact model (UFDG) for generic DG MOSFETs, having a small number of process-based
parameters that relate directly to the device structure as well as the underlying physics. The
process/physics basis of UFDG renders it quasi-predictive and, when implemented in a circuit
simulator, capable of projecting nonclassical CMOS performance and its sensitivity to expected
fluctuations in the fabrication process. The research will comprise three stages, all of which could
necessitate UFDG upgrades. First, UFDG, supplemented by a suite of numerical device
simulators, will be used for inverse modeling of FinFETs fabricated at Freescale Semiconductor
(formerly part of Motorola) to learn how to effectively dope the Si fins, e.g., the source/drain
extensions, and how to characterize doping profiles in the fins. Second, UFDG and the
supplemental tools will be used to optimally design FinFETs, e.g., with regard to gatesource/
drain underlap (and bias-dependent Leff > Lgate) and its control of short-channel effects
and the Ion/Ioff ratio. Third, UFDG/Spice3 will be used to project CMOS performances with
optimal FinFET designs. Technological support from Freescale will aid, verify, and demonstrate
the optimal designs.
The intellectual merit of the research is reflected by its two main contributions: (1) physical
insights and guidance regarding the optimal design and fabrication of nanoscale FinFETs,
including experimental demonstration, and (2) a reliable physics-based compact model that could
be used for future design of CMOS circuits comprising nanoscale FinFETs, in addition to aiding
the device technology development. The broader impacts of the research will be on the
education of students and engineers in the area of nonclassical nanoscale device technologies and
physics, with emphasis on FinFETs but with a broad basis for application to other, potentially
viable IC technologies that can be scaled beyond the limit of conventional CMOS. New graduate
courses will be defined based on the research. And, by promoting the continual advancement of
nanoscale IC technologies, the semiconductor industry and its customers will be impacted
positively.